The Role of Proteoglycans in Retroviral Mediated Gene Transfer

9800617 Yarmush This SGER proposal deals with increasing the effectiveness often transfer to mammalian cells using recombinant retroviruses. In previous efforts, the PIs have found that glycoproteins produced by virus producer cells inhibit retroviral-mediated gene transfer. Enzymes that degrade these proteoglycans enhance the productivity of the gene transfer to mammalian cells. Since the size of the proteoglycans and the viral particles are similar, physicals separations seem unlikely. The overall goal of this proposal is to better understand the role of the proteoglycans in the inhibition process. This will be accomplished by: Isolating and purifying the proteoglycans and studying their impact, and the impact of their protein and glycan fragments on the transfer process Measuring the binding of these inhibitors to both the target cells and the retrovirus. Identify the inhibitor fragment and the cell receptor responsible for the inhibition. Develop a model of the inhibition process A better understanding of the inhibition mechanism and its scope should facilitate discovery of routes to remedy the problem. One such route already considered involves incorporation of genes for proteoglycan destruction. ***